Instrumentation to Facilitate Undergraduate Experiences in Behavioral Neuroscience

9452383 Mickley Research in the field of Neuroscience is progressing rapidly and student demand is high for curriculum in this area. To support this need, we provide a laboratory for undergraduates (psychology majors and non-majors at all levels) with some demonstrations and a variety of hands-on experiences in behavioral neuroscience. The project focuses on laboratory experiences in a physiological psychology course. However, demonstrations of basic neuroscience techniques and knowledge gained from these techniques are integrated into other courses in the psychology curriculum. The project utilizes equipment to enhance skills with computers as research tools, the learning of brain anatomy, the brain's structural-functional relationships and the practical methods of neurophysiology and behavior. These enhancements also support our emphasis on the learning of general scientific principles.